Student to Academic Professoriate for American Indians - SAPAI

ABSTRACT
HRD-0639735
University of Montana
Penny Kukuk

There is a need to increase the numbers of graduate degrees in science and engineering obtained by students from underrepresented groups in order to maintain science excellence in the United States (Nat. Acad. Sci, 2000). American Indian and Alaska Natives (AIAN), especially those in science and engineering fields, are severely underrepresented among faculty in academia, government and industry. Effective programs specifically focused on the members of the varied and unique tribal nations are desperately needed. Therefore, The University of Montana (UM) and The University of Arizona (UA) are collaborating with the All Nations Lewis Stokes Alliance for Minority Progress (ANLSAMP), Tribal colleges and universities (TCUs) in Arizona and New Mexico, plus the Alfred P. Sloan Foundation to propose the "Student to Academic Professional for American Indians" (SAPAI) initiative. This consortium proposes to work with AIAN graduate students to increase graduate degree completion and facilitate their transition into the professoriate, particularly at TCUs. Specifically, the consortium aims to increase rates of degree completion for AIAN students in STEM fields who have completed all requirements for their graduate degrees with the exception of their dissertation or thesis and increase AIAN representation in STEM faculties at TCUs. The consortium proposes to accomplish these goals by conducting 8 week intensive Writing Retreats and through a program that matches the science faculty needs of TCUs with appropriate SAPAI Scholars and providing support for the scholars for their first year at the TCU. The consortium also proposes to prepare scholars to enter the TCU professoriate during an 8 week, intensive TCU Training Program.

Intellectual Merit... This award has the potential to significantly impact science higher education for Native American students and to bring this cultural perspective more effectively to the overall STEM research agenda. The process for doing this, which includes a substantive writing workshop to help ensure dissertation completion and a carefully crafted training and matching process designed to increase STEM faculty at tribal colleges is impressive. The endorsement of the Sloan Foundation and the involvement on ANLSAMP also make this a very compelling project.

Broader Impact... This program will address the deficiency of AIAN science educators in tribal colleges and universities. Because SAPAI scholars will be trained (TCU Training) to become excellent grant writers the potential for them to bring external support for research and science education into the TCU communities is high and could have important economic impacts on these communities.